Graduate Honorable Mention Award: Wiliam R Head

This special minority award will give Ph.D. student William R. Head additional funding in pursuing his graduate studies and research initiation in political science. This award will strengthen minority research participation in this area.